Supplemental Funding for Women, Minority and Handicapped Eng. Research Assistants: Role of Thermal Energy Transfer in Material Removal Processes Using Abrasive Waterjets

This proposal is concerned with the thermal aspects of material cutting using abrasive water jets. This cutting technique holds high promise of becoming a viable alternative to oxyfuel and plasma torches, lasers, saws, and diamond wires. The proposed work will identify the temperature field induced in the workpiece by the cutting operation. Another objective of the work is to examine the response of the cutting efficiency to external heating or cooling of the workpiece.